CLEANER: Cyberinfrastructure and Management System Development for the National Collaborative Large-Scale Engineering Analysis Network for Environmental Research Network

0414259 Eheart The focus of the proposed project is on developing a community consensus plan for the functioning and needs of the Engineering Analysis Network (the EAN portion of CLEANER). The EAN would implement the CLEANER vision through a system of instrumentation, data, and computational resources, shared by geographically-distributed investigators and supported by cyberinfrastructure. (a system of computers, digital data, networks, algorithms, and collaboration tools that supports geographically distributed teams of researchers and educators). This project will define the EAN, including the cyberinfrastruture and management plans necessary to bring the CLEANER vision into fruition, using a collaborative, community-based process supported by state-of-the-art information technology.